Student Travel Awards to Attend the Annual and European Summer Meetings of the ASL

Abstract

Award: DMS-0300055
Principal Investigator: Charles I. Steinhorn

This project funds travel awards to graduate students in logic to
support their participation in the Annual Meetings and the
European Summer Meetings (Logic Colloquia) of the Association for
Symbolic Logic. These two events are arguably the most important
meetings in the field of logic; since their inception, they have
been international scientific meetings of the highest standard of
excellence. The Association works to ensure that these meetings
cover logic comprehensively and that they represent the highest
quality work being done in this field. They accordingly have
provided important opportunities for intellectual exchange, thus
acting as a stimulus to advancement of research. For graduate
students in logic, the opportunity to attend one or both of these
ASL meetings is an indispensible component of serious
participation in the profession.

The Association for Symbolic Logic is the leading international
professional society for logicians, whose membership includes
researchers in computer science, cognitive science, linguistics,
mathematics, and philosophy. It organizes and sponsors a number
of important meetings. Most prominent among these are its Annual
Meeting, held each year in North America, and its European Summer
Meeting. The Association also has met for many years at the Joint
Mathematics Meetings and with the American Philosophical
Association. Recent sponsored meetings have taken place in Asia,
Australia, Europe, and North and South America. During the last
few years, the Association has actively sought to increase the
range and number of meetings of which it is a sponsor. A
particular aim of this effort is to embrace new and emerging
fields in which logic has come to play an important role,
including computer science, linguistics, and cognitive
science. This project will permit the continuation of a
successful program of graduate student travel awards that the
Association has administered since 1993 and that has been partly
funded by NSF since 1997. The program has proved to be a highly
effective means of bringing students in logic to important
professional meetings at which they can meet and exchange ideas
with leading logicians, an experience which is a vital component
in training future Ph.D.'s in the field. Almost fifty percent of
the awards funded by N.S.F. during the period 1998-2001 (the
first N.S.F.-supported awards were made in 1998) went to students
who subsequently have earned their Ph.D.'s in logic. Further
information on the Association may be found on its web site:
http://www.aslonline.org.